III: Medium: Longview: Querying the Future Now

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Traditional database systems are designed to provide the user with a
clear picture of past states of the world as is represented in the
database. Recently, stream processing systems are introduced to
produce near real-time answers for those applications applications
that require up-to-date information. Thus, we see a trend toward
shrinking the “reality gap” to zero. But for some applications, even
real-time is not good enough. There is often a desire to get out in
front of the present by delivering predictions of future events to
take advantage of opportunities or to avert calamity. Security
applications are a good example since they are typically interested in
preventing a breach rather than simply reporting that one has
happened. There is currently no database system that can effectively
serve as a generic platform to support such predictive applications.

This project aims to fill this gap by designing and building a
prototype database system called "Longview" to enable data-centric
predictive analytics. Longview facilitates the use of statistical
models to analyze historical and current data and make predictions
about future data values and events. Users can plug new predictive
models into the system along with a modest amount of meta-data, and
the system uses those models to efficiently evaluate predictive
queries.

Longview treats predictive models as first-class citizens by
intelligently managing them in the process of data management and
query optimization. This involves automatically building models and
determining when and which model(s) to apply to answer predictive
queries. This also involves creating and using the proper physical
data structures to facilitate efficient model building, selection, and
execution. Longview handles both streaming and historical queries. In
fact, many streaming queries need efficient access to an archive of
past values, making it necessary to seamlessly combine both stream and
historical processing. Finally, Longview investigates "white-box"
model support, in which the database leverages the operational
semantics and representation of models to improve performance.

Longview's goal is to make it much easier to build predictive
analytics applications in data intensive situations. Seamlessly
combining data and model management is key to make the process of
computing with predictions far easier to express and more efficient
than the current ad-hoc application-level approaches. The resulting
technology also allows for a better understanding and support for
user-defined functions in database systems.

Longview is initially used for a real-world sensor-based tracking
application and a predictive web portal for easy experimentation with
different models and data sets. Further information on the project can
be found on the project web page:
http://database.cs.brown.edu/projects/longview/